Acquisition of Computer Controlled Electronics for the Mechanical Testing Facility

Funds are being provided to upgrade the mechanical testing facilities in the Dept. of Metallurgical and Materials Engineering at the Colorado School of Mines. This multi-user facility is extensively used for metals and ceramics-based research programs at this university. Addition of the requested state-of-the-art electronics and computer systems to the existing test frame hardware will result in a state-of-the-art facility with significantly enhanced data acquisition and analysis capabilities. These upgraded facilities are to be used for studies of material formability, fatigue, and fracture mechanics.